U.S.-Italy Cooperative Research: Mossbauer Studies of Rare-Earth 3-d Laves Compounds

9308980 Segnan This one-year award supports U.S.-Italy cooperation between Romeo Segnan, American University, and Drs. Gianfranco Albanese and Cesare Bucci, University of Parma, Italy. They will perform detailed Mossbauer Effect (ME) measurements in rare-earth-iron compounds that exhibit huge magnetoelastic interactions. Magnetostriction processes cannot be explained easily by currently available models and theories. It is possible that the proposed Mossbauer Effect studies will provide the data and the information that will elucidate this problem. There may be technological benefits as well in fields such as active vibration control and precision machining, where large forces and small displacements are required. The Mossbauer measurements will be performed at the University of Parma and will complement the magnetization and magnetostriction measurements carried out in the U.S. at the Naval Surface Warfare Center (NSWC). This laboratory will provide samples of the desired composition for the collaboration. Dr. Segnan, who has worked extensively in Mossbauer spectroscopy, has collaborated at NSWC in magnetocrystalline anisotropy and magnetostriction measurements. The Parma group is known for its research in Mossbauer spectroscopy, nuclear magnetic resonance, and hyperfine interactions. * * *